Support of 1987 Gordon Research Conference on Nonlinear Optics and Lasers, July 26 - July 31, 1987; Wolfeboro, New Hampshire

Nonlinear optics and nonlinear optical phenomena involve interactions between a light beam and specially chosen materials which can result in; light beam generation which has a tunable color; multitudinous light beams which can switch one another; memories; and other phenomena which in the long run can have practical implications. This conference brings together experts in materials and optical phenomena to discuss the most recent results and problems associated with this field.